Teachers Teaching Teachers

The main goal of the project is to enable the Council of Presidential Awardees in Mathematics (CPAM) to conduct a series of workshops and seminars for teachers of mathematics at two main sites in the country, namely the University of Northern Iowa and the University of Northern Arizona. Over a three year period 300 teachers of mathematics will receive inservice educational experiences to update their knowledge of mathematics and modern pedagogical practice. An honors seminar will be held for fifty participants for two weeks each during June which there will be lectures, discussion groups and planning sessions. The instructional staff consists of past Presidential Awardees cooperating with faculty members at the University of Northern Iowa. Also, some past Presidential Awardees will be participants in the seminars along with other talented teachers of mathematics. Later, in each summer, the leaders who have experienced the honors seminar will conduct two week inservice sessions for other teachers at other universities. Three workshops are planned: one will focus on issues of teaching and learning mathematics at the middle school/junior high school levels, a second will emphasize questions related to geometry, and a third is to focus on discrete mathematics. Problem-solving, applications, the integration of computers, and techniques of instructional methodology are aspects of all the workshops. The follow-up activities include one-day sessions to be held each semester as well as visitations by the workshop leaders at the schools of the participants. there is a newsletter planned as well as research components related to each of the planning groups. The non- NSF cost sharing is approximately eleven percent of the funded amount.